Great Plains Operator Theory Symposium 2014

This award provides funding to help defray the expenses of participants in the "Great Plains Operator Theory Symposium 2014" that will be held from May 27-31, 2014, on the campus of Kansas State University.

This conference is the thirty-fourth installment of the Great Plains Operator Theory Symposium (GPOTS), a series that annually brings together a diverse group of mathematicians whose primary research interests are in operator theory or operator algebras. The main foci of the 2014 event are the following: the Kadison-Singer conjecture; classification of C*-algebras; applications of set theory to operator algebras; graph algebras; von Neumann algebras. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.